REG: Computing Equipment for Constitutive and Failure Mode Modelling of Advanced Materials

Workstations will be purchased to enhance the acquisition, real time treatment and post-processing of large amount of experimental data obtained from moire and coherent gradient sensing interferograms, and STM pictures. High graphic capabilities, good computer power and large memory space are needed for better resolution and to handle the quantity of information.